Theory of the light - atomic ensemble interface

A program of theoretical research on the interaction of light with cold, optically
thick, atomic ensembles is proposed. Quantum control of the interface between light
fields and atomic matter is essential for future scalable quantum network systems which
have application to the secure sharing of information between remote parties. The success
of the implementation of atomic ensembles in that context depends on achieving high
efficiency and long-lived coherence in their interaction with the light input and output
channels. The properties and characteristics of the interactions in such a multi-mode and
multi-atom system will be thoroughly addressed by means of the analytical and numerical
methods of atomic physics and quantum optics. The collective enhancement of the
interactions between the light field and multi-atom states of the ensemble provides an
organizing principle for their understanding, as well as a mechanism for strong,
directional coupling between light and matter. Another characteristic of light propagation
in optically thick media, the mixed light/multi-atom excitation known as the dark state
polariton, will be investigated as a means to perform controlled storage, and subsequent
retrieval, of light pulses down to the single photon level. The research will focus on
realistic experimental scenarios including the study of relevant states of preparation of the
atomic ensemble, and the incident light fields. In this context, the coupling of ambient
magnetic fields to the spins of the atomic nucleus and electrons provides the primary
decoherence mechanism. This process and its impact on the overall storage and retrieval
efficiency of the light field will be investigated in detail.